Contemporary Methods for Synthesis and Analysis in Undergraduate Chemistry

Chemistry (12)

Three new lecture/laboratory courses have been designed to replace older courses in instrumental analysis, organic analysis, and inorganic synthesis. These new courses cut across traditional disciplinary divisions to focus on separations and spectroscopy, synthesis, and analysis. These courses are taken by upper-level chemistry majors and are incorporating modern techniques of separations, spectral analysis, techniques of synthesis, and product analysis. This award provided funding so that modern instrumentation such as UV-visible spectroscopy, gas chromatography coupled with mass spectrometry, capillary electrophoresis, and high performance liquid chromatography is now available for the students in these courses. Experiments are being adapted from the research and educational literature and implemented into these courses. Molecular modeling experiments are augmenting the analysis of a variety of experimental data.